Mechanisms and Evolution of Behavior

9724053 Pruett-Jones This research involves ecological and behavioral studies of a group of passerine birds in Australia, the fairy-wrens. These species are endemic to the Australian mainland and exhibit a variety of interesting patterns of behavior, the study of which will help us understand evolutionary processes and social behavior in non-human species. Fairy-wrens are interesting because individuals live in large social groups and the offspring from one generation remain in the territory and assist the parents in raising young in successive breeding attempts. Also, despite the close social ties between individuals in the same group, individual males and females generally mate with birds in other social groups. This extreme complexity and difference between social interactions and reproductive patterns in fairy-wrens offers a unique opportunity to study the evolution of animal societies. In our study of reproductive patterns, and of the sex ratio of offspring, we are using the technique of DNA profiling (i.e., fingerprinting) and microsatellite analysis. Separate from the specific species under study, this research will also contribute to the field of molecular biology and the refinement of techniques that have applicability in human research. This study will be conducted in mallee scrub habitat in South Australia, one of the most threatened habitat types in Australia, and it will further our understanding the ecology of this important ecosystem. This study will contribute to the conservation of mallee habitats and provide information critical to the management of mallee bird species.